Equipment: Scripps Institution of Oceanography - Shipboard Scientific Support Equipment

Scripps Institution of Oceanography (SIO) requests funds for shipboard scientific support equipment that is needed to carry out NSF-supported scientific research. Working within the collaborative framework of the University-National Oceanographic Laboratory System (UNOLS), the proposed equipment will be maintained by the SIO ship operations department for use by NSF-supported scientists from institutions nationwide who require these seagoing facilities.

With this proposal, SIO provides technical descriptions and rationale for the acquisition of the following Shipboard Scientific Support Equipment:

1) Mooring winch for West Coast Winch Pool $399,249
2) General purpose winch OS-42 for BIOS $396,965
3) Management of procurement, testing, shipping, and installation $156,014
4) Markey Remote Access Systems on Roger Revelle and Sally Ride $13,826
5) Overboarding block for Robert Gordon Sproul $13,617
6) IDC $28,818
$1,008,489

Broader Impacts

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.